Rapidly-convergent, high-performance PDE solvers for materials-science and engineering applications: theory, implementation and applications.

Bruno
0707564

The investigator seeks development and analysis of accurate,
rapidly convergent, high performance solvers for the types of
challenging partial differential equations that arise in
present-day materials science applications, as well as use of
such solvers for design of concrete devices and prediction of
properties of realistic systems. He creates algorithms to treat
certain types of problems related to potential theory and wave
propagation, composite materials and optical devices, elasticity,
acoustics, and electromagnetism. Significant difficulties arise
in these classical fields of numerical analysis and computational
science in the context of the materials science problems
considered, which require treatment of microstructures,
non-coercive systems, geometric singularities, resonant
structures, high frequencies, multiple scattering, etc. These
are mathematical problems that, in spite of significant efforts
and progress over the last century, remain elusive in a wide
range of important instances. The combination of a number of
such challenges often arises in the treatment of materials
science configurations, which has made materials problems
difficult to tackle. In particular, most algorithms available
for the types of materials science applications considered in the
project lack in either accuracy, computational efficiency, or
both -- a circumstance that has hindered progress in the field.

The investigator develops effective, high-performance
computational methods for solving partial differential equations
that model the properties and behaviors of various physical
systems, emphasizing features important for materials. The
project has consequences for several areas of societal interest,
including the medical field (tomography, imaging), electrical
engineering (optics, electronics), military and civilian remote
sensing (radar, sonar, stealth), communications (antennas),
atmospheric science, etc. The project also provides training for
students at both graduate and undergraduate levels, as well as
for postdoctoral associates.